Representation and Exploitation of Uncertainty in Exploration and Control

This award is for a postdoctoral associate in Experimental Science. The associate, David Cohn, will be working on active learning and artificial intelligence.